Effects of Hydrodynamic Forces, Sub-lethal Herbivory, and their Interaction, on the Mortality, Morphology and Composition of Kelps

Eckman 9314694 The species composition of kelp assemblages and the abundances of plants assemblages are influenced significantly by two major types of disturbance - attacks on plants by herbivores, such as urchins, and forces imposed on plants by moving water which may dislodge or break them. These two forms of disturbance may interact significantly, because sub-lethal mechanical damage of plants by herbivores (a typical result of herbivore attack on larger sporophytes) can weaken a plant's resistance to fluid forces. This study will examine these effects by carrying out an extensive series of measurements and experiments on kelps of several species and morphs in situ, working at several sites along a gradient of flow energy in both the San Juan Archipelago, Washington, and Barkley Sound, British Columbia. This study will: (1) make long-term measurements of current and wave energy simultaneously at a series of permanent sites and microhabitats within a site to characterize forces imposed by seawater; (2) measure probabilities of kelp mortality and frequencies of sub-lethal damage of plants by herbivores; (3) measure forces applied to kelps by flow; (4) measure forces required to break or dislodge kelps, the location of kelp failure, and the functional (allometric) dependence of breaking force on plant size and shape; (5) measure the variability in (2-4) among species, sites and microhabitats, and (6) conduct experiments to determine the impact of herbivores on breaking force and probability of mortality. ***